Characterization of cis- and trans-acting factors regulatingroot-specific gene expression in tobacco

In this proposal, we propose to further our analysis of the regulation and cell biology of the tobacco root-specific gene, TobRB7. We have chosen to concentrate our analyses to genes expressed specifically in roots. To date, only seven such genes have been reported (four of which were reported by us). Cis-acting sequences responsible for regulated root-specific expression have been characterized for only one gene (TobRB7). We propose to combine linker-scanning and internal deletion mutational analysis with DNA footprinting experiments to identify the precise sequences responsible for regulating root-specific gene expression. These sequences will be used subsequently to identify cDNA clones encoding the cognate DNA-binding proteins. The cell biology of the TobRB7 gene product (expressed in the immature vascular tissue and predicted to served as a membrane channel) will be characterized further. Immunolocalization experiments have putatively localized the gene product to the plasma membrane. Experiments are proposed to examine the physiology of transgenic plants carrying sequences designed to disrupt TobRB7 gene product function. Finally, we propose to initiate the analysis of a second root-specific gene (TobRD2) using technologies similar to those that have proven successful for TobRB7. In situ hybridization experiments using TobRD2 probes demonstrate that this gene is expressed specifically in the root cortex. We propose to compare and contrast the regulatory circuitry of this gene with that of TobRB7. %%% Despite the importance of roots in plant growth and development, relatively few genes expressed specifically in roots have been isolated. The results of this study should significantly improve that situation.